The Isotopic Composition of Iron: A Chemical Fingerprint forBiologic Activity

9713968 Beard, Johnson Abstract This award supports a project to develop a chemical method for fingerprinting biological activity in meteorites using the isotopic composition of iron (Fe). It is supported by the Office of Polar Programs, the Chemistry Division, and the MPS Office of Multidisciplinary Activities. Development of a biological chemical fingerprint will be useful in: 1) evaluating the recent interpretations that meteorite ALH84001 contains evidence of ancient biological activity on Mars, partly in the form of ultra-fine-grained magnetite and sulfide iron minerals that are inferred to have been formed by iron-reducing bacteria; 2) screening extraterrestrial material for biological activity (meteorites or samples returned from future missions to other planets); and 3) establishing the time limits for the earliest life on Earth. Biologically produced iron-bearing minerals are ubiquitous, and many iron biominerals are produced by bacteria that reduce ferric iron to ferrous iron, resulting in formation of iron-oxides, - sulfides, or -carbonates. The metabolic pathway for iron reduction is the same as that used by bacteria which reduce sulfate to sulfide. Bacteria reduction of sulfate can produce large fractionations in sulfur-34 to sulfur-32 ratios. By analogy to sulfate-reducing bacteria, iron reducing bacteria are expected to be capable of producing Fe isotope fractionations that are on the order of those observed for sulfate reducing bacteria, based on the relative mass spread of Fe and S isotopes. This magnitude of fractionation is suggested by preliminary studies of Fe isotopes by Dixon et al., who interpret the Fe isotope ratio variations they measured in terrestrial samples to reflect biologically-induced Fe isotope fractionation. The scope of this research will be to establish a baseline for the isotopic composition of inorganic iron by analysis of inorganically produced Fe-bearing minerals from a variety of physical settings . Evaluating the Fe isotope fractionation produced by biological processes will be conducted by analyzing iron biominerals that were grown from isolated bacteria strains in a controlled laboratory environment. With these limits established, it will be possible to use the isotopic composition of Fe to evaluate if inferred iron biominerals in Martian meteorite ALH84001 were produced inorganically or by biological activity.